Marine Geology of the Antarctic Continental Margin

This award supports the continuation of marine geological research on the Antarctic continental margin. This research focuses on four areas: 1) Mapping the distribution and paleodrainage of marine ice sheets and ice shelves on the Antarctic continental shelf during the last glacial maximum, through sedimentologic analysis of cored deposits and high resolution seismic investigations. Radiocarbon dating will be used to constrain the timing of glacial events. 2) Increasing our understanding of glacial marine sedimentation by conducting detailed lithofacies studies in areas that are considered representative of Antarctic glacial marine environments. 3) Examining the deep sea hemipelagic and turbidite record to determine how glacial changes are manifested in these deep sea deposits. 4) Conducting high resolution seismic stratigraphic studies of the Antarctic Peninsula and Ross Sea continental shelves with emphasis on the Neogene tectonic and glacial evolution of these regions. Results from the last ten years, and from work to be completed in the next two years, will be compiled in the form of a folio series on the Antarctic continental margin.